Oceanographic Instrumentation

0305104
Coale
This award to San Jose State University in California provides support for the acquisition of oceanographic instrumentation to be used on R/V Point Sur operated by the Moss Landing Marine Laboratories. Specifically, support is recommended to acquire twelve Niskin bottles, an acoustic locator system, two transmissometers, two oxygen sensors, two fluorometers and a shipboard computer server with email software. These acquisitions should provide a substantial advantage to marine scientists using R/V Point Sur in their research during 2003 and future years.
***